The Sixth, Seventh and Eighth NSF Materials Chemistry Workshops

This conference award to Catherine Page at the University of Oregon is made by the Advanced Materials Program in the Chemistry Division and the Solid State Chemistry Program in the Division of Materials Research in support of the 6th-8th Materials Chemistry Workshops. The goals of the Workshops are to provide a forum for discussion of ongoing and emerging areas of research and education among scientists with varied backgrounds and common materials chemistry interests and to promote dialog between industry, government and academic scientists. The two and one-half day workshops will be held on the third weekend in October with up to thirty participants selected by a competitively reviewed application process. Specific Workshop sites will be determined by the Program Chairpersons and are expected to be in Oregon, Minnesota and New Jersey. The Materials Chemistry Workshops will provide a forum conducive to the development of ideas, help bridge gaps among the materials chemistry constituencies in academia, industry and government labs, lead to new collaborations and define the frontiers of materials chemistry.